Fourteenth International Congress on Mathematical Education (ICME14) Travel Grant

This project will support the participation of 53 US K-12 mathematics teachers, graduate students, community college/university mathematicians, mathematics teacher educators, and mathematics education researchers to attend the Fourteenth International Congress for Mathematical Education (ICME-14) to be held in Shanghai, China July 9-16, 2020. While mathematics education in the United States has its own culture and expectations, the work and conversations of mathematics educators across the world might contribute to our understanding of issues facing our community today such as curriculum development, the use of technology, strategies for reaching all students, teacher education and professional development. The questions we have as a nation about our own mathematics education might be informed and enlightened by international conversations with others confronting similar issues. A research team led by Sharon McCrone, University of New Hampshire, will prepare a 2020 Fact Book on US mathematics education, building on reports for prior ICMEs. The travel grant will increase the number and diversity of the US mathematics education community attending the international congress, which will enable a broader representation from the US to benefit from interaction with the world's leading mathematics educators. This project is supported by the Discovery Research preK-12 program (DRK-12), which seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

Through a careful selection process, experts in the field will identify travel recipients most likely to benefit from attending ICME-14 and well-positioned to disseminate insights from their experience. Fostering understanding of international issues and practices among educators and researchers in the US may enhance their capacity to take an informed, global perspective in their work, which, in turn, may benefit their local communities. Digital media will allow educators and classrooms to make and maintain contact across the world, enabling ICME-14 grantees to maintain connections initiated at the meeting and have an impact on large numbers of school children and teachers, both preservice and practicing, in the US. At ICME-14 these educators will engage in learning about the "state of the art" with respect to research and practice in mathematics education from a wide variety of perspectives and will be able to discuss common challenges in teaching and learning mathematics.